A summer minicourse and workshop on mathematics and string theory

For several years now, the University of Utah has run two-week intensive summer
minicourses in which some aspect of modern mathematics was taught to visiting
mathematics graduate students and postdocs. In June 2007, the minicourse will be on
mathematics and string theory, topics relevant to recent physics. The Co-PIs together
with Eric Sharpe (a physicist at Utah U) expect this to be an important opportunity for
young physicists as well as mathematicians. Money to support visiting mathematics
students already exists (through the University of Utahs VIGRE grant, and potentially
through additional MSRI support). This proposal requests support to reimburse lodging
and travel for five visiting young physicists. The minicourse will be immediately followed
by an AMS Summer Research Conference to be held at Snowbird, Utah, again
organized by the Co-PIs and Eric Sharpe. This research workshop will be held on the
same topics as the minicourse, and like the minicourse primary funding already exists.
The physicists who attend the minicourse will also be able to attend the workshop The
intellectual merit of this subject is justified by the current activity in both the mathematics
and physics communities. Some research results may come directly out of this summer
minicourse, as attendees apply what they have learned. The impact of the minicourse
will be broadened by bringing the physicists and mathematicians together, to help them
form good interdisciplinary contacts that will serve them well in future years.
Furthermore, the Co-PIs plan to videotape the lectures and make them available on the
web, so that non-attendees can also benefit, further broadening the impact of this
summer minicourse. Efforts will be made to encourage participation of women and
underrepresented minorities.
NATIONAL SCIENCE FOUNDATION
Diary Note
Proposal:0652421 PI Name:Lee, Yuan-Pin
Printed